MRI/RUI: Acquisition of a Time-Resolved Laser Flash Photolysis System for Undergraduate Research and Training in Chemistry

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Colby College will acquire a time-resolved laser flash photolysis system for undergraduate research and training in chemistry. This equipment will enhance research studies in a) carbene chemistry and b) the aquatic photochemistry of iron.

This instrumentation will bring laser based techniques into the undergraduate education (both teaching and research) of Chemistry majors, and further strengthen the quality of undergraduate research and education at Colby College.